Planning Grant: I/UCRC Center for Visual Decision Informatics

PROGRAM DIRECTOR’S RECOMMENDATION

IIP 0934197
Drexel University
Hu

Drexel University (DU) is planning to partner with the University of Louisiana-Lafayette (UL) to form a new NSF Industry/University Cooperative Research Center (I/UCRC) entitled "Center for Visual Decision Informatics." The mission of the Center will be to develop new visual and analytical methods that leverage modern computer hardware and software, and develop analysis and discovery tools that can be applied to this complex data-based decision-making process.

DU's research projects in biomedical image mining, analysis of brain circuits, exploration of large-scale knowledge maps, and visual analysis for reasoning demonstrate research strengths that are complementary to those at the University of Louisiana-Lafayette. The proposed site will provide a platform to stimulate innovation through collaboration among members, and will improve the training and education of employees of Center members using immersive visualization.

The proposed site will provide students and faculty a platform to conduct industry-relevant research, an effective and convenient mechanism for collaboration formation and maintenance; and will also promote, catalyze and accelerate the commercialization of technology innovations. DU is committed to recruiting participants from groups that are traditionally under-represented in computer science and other scientific disciplines; and will promote this program through its ongoing working relationships with colleagues at minority institutions including Lincoln University at Pennsylvania.